Evolution, Transport and Reconnection in Magnetic Structures: Mechanisms of Solar-Terrestrial Activity

This research program aims to comprehend physical mechanisms underlying the magnetically dominated energy-conversion processes that drive solar terrestrial activity. This will involve the formulation of an MHD treatment of transport-enriched evolution and instability processes, and their three-dimensional nonlinear simulation on supercomputers. The strategic goal of these realistic simulations is to use observable inputs to achieve a predictive capability with respect to solar activity. Studies performed under this project will help in understanding related phenomena in the wider universe of astrophysics, and by the need to predict their consequences in the solar-terrestrial system.